A Multidisciplinary Amazon Shelf Sediment Study (AmasSeds)

This is the sedimentary geology componenet of AMASEDS. The objective of AMASEDS was to identify dominant processes controlling strata formation on different time and vertical scales and their implication for paleoenvironmental interpretations. This is a new award to allow the laboratory analysis of AMASEDS samples to be continued towards the fruition of the project.